Production and Regulation of Organelle Transport in Melanophores

9405763 Haimo The proposed studies seek to elucidate the mechanism by which cells control the direction of movement of organelles along microtubules. As a model system, pigment granule transport in melanophores from Tilapia mossambica and Fundulus heteroclitus will be examined. The cells cyclically aggregate and disperse pigment to and from the cell center. Dispersion is mediated by kinesin and requires protein phosphorylation by cAMP dependent protein kinase, while aggregation is mediated by dynein and requires protein dephosphorylation by calcineurin. The current studies seek to determine if the regulatory control is exerted on dynein, on kinesin, or on both motors. Studies will be undertaken to localize the motors during each direction of transport and to determine if the ability of either motor to interact with pigment granules or microtubules differs when obtained from cells undergoing opposite directions of transport. During pigment granule dispersion, the granules saltate, making transient retrograde excursions during a process of overall anterograde movements. Phosphatase activity will be inhibited in melanophores undergoing dispersion to determine if saltations require transient dephosphorylation events. In addition, dynein activity will be inhibited in aggregated cells or kinesin activity will be inhibited in dispersed cells to determine if these inhibitions result in spontaneous dispersion or aggregations. The results of these studies should reveal if it is dynein or kinesin that is regulated. A protein of 70 kD is specifically phosphorylated during dispersion and dephosphorylated during aggregation. This protein is immunoprecipitated with antibody to kinesin heavy chain. Studies will be undertaken to identify this protein and elucidate how its phosphorylation state might regulate pigment transport. %%% The regulation of skin coloration in fish is due to the distribution of pigment granules in certain skin cells called melanophores . When these granules are tightly aggregated near the center of the cell, the fish appears light. When the granules are dispersed throughout the cell, the fish appears dark. When stimulated (e.g., by changes in ambient light conditions, fright, or other causes), the fish will change its coloration appropriately. The mechanism whereby these subcellular pigment granules move inside the cell involves cellular motor proteins which transport the granules along stationary tracks, or cytoskeletal structures. The cytoskeletal structures are called microtubules, and radiate out into the cytoplasm from a central location in the cell called the microtubule organizing center. The microtubule-associated cellular motor proteins are called kinesin and dynein. The goal of this project is to elucidate exactly how the pigment granules become associated with the motor proteins, and how the directionality of the movement is controlled by the cell. The significance of the project extends well beyond simply understanding how fish change color, since microtubule-mediated intracellular motility is key to many critical cellular functions, including cellular division (movement of chromosomes during mitosis), nerve cell function (movement of synaptic vesicles bearing neurotransmitters from their site of synthesis to their site of release from the neuron), and ciliary and flagellar beating (sliding of microtubules to produce waves of motion necessary for swimming of sperm and protozoans and for mucus movement along the lining of the respiratory tract). Thus, understanding the mechanisms which regulate the activity of motor proteins is a cutting edge problem in cell biology. Furthermore, since the cellular machinery is so very small (the diameters of cytoskeletal elements are in the nanometer range), a complete understanding of how these chemomechanical transducers work can provide a valuable paradigm for nanofabrication engineering of "smart" materials. ***